Measuring and Modeling the Productivity of Pine Forest Ecosystems--Workshop and Global Synthesis: Gainesville, Florida; June 17-24, 1990

MEASURING AND MODELLING THE PRODUCTIVITY OF PINE FOREST ECOSYSTEMS - A WORKSHOP AND GLOBAL SYNTHESIS Dr. Gholz will conduct an international workshop addressing the interactions among environment, soil conditions and carbon dynamics of Pinus forests throughout the world. An emphasis will be on the synthesis of existing large data sets from ecosystem research projects that have focused on stands dominated by seven different pine species from eleven different sites in the boreal, temperate and subtropical zones. Extensive use will be made of existing computer models, although the focus will not be on the models themselves. Three days of the workshop will address key questions in forest ecosystem science through a comparison of the differences and similarities among species and sites in the controls on carbon cycling processes, including canopy dynamics and carbon fixation, respiration, and allocation to growth and roots. Models will be used in two days of hands-on simulation sessions to facilitate synthesis.